Comprehensive Control for Turning Centers

The overall objective of the project is the development of a comprehensive control system for turning centers, based on reliable process models, the sensing and processing of multiple process monitoring signals, and the intelligent control of the system in response to limiting factors and disturbances. The emphasis is on the development of intermediate products and solutions in the areas of design, manufacturing, and control. Analytically deterministic models including process control and machine tool dynamics, act as the link between the top-down expected process parameters used to set sensors thresholds and the bottom-up information flow of extracted and interpreted sensor data. The comprehensive strategy is designed to augment the controllability and reliability of the machining process through a multi-model, multi-sensor system which increases the quantity and quality of process information. The system demonstrates input control evaluating process parameter specifications as well as output control determined by the condition of the workpiece or process outputs conveying disturbance-type limiting factors. This project is a step in the process of moving to unmanned manufacturing.